Workshop: Current and Future Strategies for Computational Chemistry to Homogeneous and Heterogeneous Catalysis, and Surface Reactivity

ABSTRACT Proposal Number: 9712406 Principal Investigator: Matthew Neurock A workshop will be held at the San Francisco Hilton, on April 18-19, 1997, as a post-meeting session of the American Chemical Society Spring Meeting in San Francisco. The format will consist of invited speakers and panel discussions, with attendees for university, federal agencies, and industry.